Modeling Directed Self-Assembly at Nano-Scales

The investigator develops and analyzes mathematical models,
and carries out computational simulations, of the aggregation of
nano particles suspended in a thin liquid layer on a patterned
substrate. The problem arises in multiscale technological
processes such as directed self-assembly of nano particles, for
instance in the fast production of multiple-channel nano-sensors.
Collaborations with experimentalists help guide the modeling.

For the last three decades, the development of
microelectronic devices has been governed by Moore's law, which
postulates that the complexity of chips doubles every two years.
This doubling is possible because the size of the features on the
chips becomes smaller and smaller. Present chips have features
about 40 nanometers wide. (A human hair is about 80,000
nanometers wide.) However, known technologies for mass production
of chips are near their limits. Directed self-assembly of nano
particles may be an alternative technology, offering advantages
of speed, cost, and efficiency, and the ability to deal with very
large numbers of particles at nano scales. Moreover, unlike
present technologies, it also allows the formation of devices
based on biological molecules, and incorporation of biological
molecules into non-biological devices. The realm of applications
of such devices is almost limitless, from electronics and computer
chips to medical applications. The investigator develops
mathematical models and computational simulations to study how
nano particles suspended in a thin fluid aggregate and how
aggregation is affected by patterns in the substrate of the fluid.
This addresses fundamental questions in the directed self-assembly
of nano particles. The project is supported by the Applied
Mathematics program of the Division of Mathematical Sciences and
the Metals Research program of the Divison of Materials Research.